Mutation 2000: Mutation Testing in the Twentieth and the Twenty First Century

The proposal is to request funding to support, in part, expenses incurred towards the organization and conduct of a symposium titled: Mutation 2000: Mutation Testing in the Twentieth and the Twenty First Century. This is the first symposium of its kind. Its twin objectives are: (a) To fuel research in the area of Mountain Testing in emerging software technologies. (b) To educate educators, researchers. and practitioners in the principles, technique, and use of Mutation Testing.